A Networkable Data System for a High Field NMR Spectrometer in the Undergraduate Curriculum

The Chemistry department at the University of Northern Iowa views nuclear magnetic resonance (NMR) spectroscopy as a critical analytical tool in undergraduate education and research. The upgrade of the data system for the existing 300 MHz NMR instrument is enhancing student access to the instrumentation and thus improving the learning environments of courses in the department. Two new computers and software operate the spectrometer, allow remote data processing, and facilitate training. The upgraded system is being used in three courses; Mrganic Chemistry II Laboratory, Instrumental Analysis, and Organic Structure Analysis. It is also used to support undergraduate research including a NSF REU program. The system's networking and data processing capabilities are used for teaching concepts, training in operation, and supporting research projects. *